Collaborative Research: RUI: Terrestrial Carbon Subsidies of Aquatic Food Webs (RUI)

Much of the organic carbon in lakes originates from surrounding terrestrial ecosystems.
Degradation of this terrestrial carbon in lakes implies that lake food webs are potentially
supported by external sources, rather than solely by internal primary production. Prior
experiments in small lakes using inorganic carbon-13 additions revealed significant
terrestrial support of aquatic food webs. This project will directly address the relative
importance of terrestrial support of food webs in lakes 4-10 times the size of lakes
studied previously. Carbon-13 will be added to two large lakes and analyzed with
several models developed by the investigators. Results will determine the importance
terrestrial subsidies in these larger lakes that are in the top quartile for size in the
Northern Highlands of Wisconsin and Michigan and representative of a large class of
temperate lakes globally.

This research will contribute to understanding lakes in a landscape context by
assessing whether differences in lake size influence food webs and carbon cycling.
Broader impacts of this project include promoting public understanding of lake
ecosystems as well as research training for graduate and undergraduate students.
Results will be incorporated into an ongoing outreach effort on the future of the Northern
Highland Lake District.